The Origin and Evolution of Galactic Lithium

Dr. Hobbs will continue his observational study of the origin and the evolution of the element lithium in our Galaxy over essentially the full history of the Galaxy. The objective of the work is to answer as directly as possible three closely related questions: (1) What lithium abundance was produced in nucleosynthesis at the Big Bang? (2) After the birth of our Galaxy, how has the Galactic lithium abundance evolved with time, and owing to what physical processes? (3) During the main sequence lifetimes of stars with masses of about one Solar mass, what mechanisms progressively destroy the lithium in these stars' atmospheres which was initially present? The method to be used consists of measurements of a lithium spectral line in an unprecedented large number of extremely old, metal-poor halo dwarf stars; in main sequence, proper motion members of the old open cluster NGC 2420, which has an age near 4 billion years; and in a comprehensive survey of the G and early K type main-sequence members of the Hyades cluster of stars.